U.S.-Korea Cooperative Research: High Energy Physics

INT-0208415
Iowa State University
$22,200

The proposed study is about collaboration and joint research in the area of particle physics, between the Korea Detector laboratory (KODEL) in Seoul, Korea and Iowa State University in Ames, Iowa. The scientific goal of the collaboration is the understanding of the origin of mass. This fundamental property of matter is postulated to come about because all particles interact with a field, called the Higgs field, which permeates the universe.